Summer Institute in the Materials Science of Materials Culture

MIT's Department of Materials Science and Engineering establishes a Summer Institute in Materials Science and Materials Culture. The purpose of the Summer Institute is to assist professors at liberal arts colleges in introducing materials science and engineering to their undergraduate curricula. The Summer Institute brings together MIT faculty, faculty from undergraduate liberal art institutions, and MIT graduate students in a modular, case study format that combines materials science and engineering with social science and humanities fields. The design of the modules considers both the physical properties and cultural dimensions of materials. Each module integrates laboratory experiences in the processing and the chemical and microstructural analysis of the material under consideration.

By teaching educators from liberal arts institutions, the project brings the perspectives and methodologies of materials science and engineering to a much broader and diverse audience than is usually present at engineering institutions, thus broadening the educational base for materials science and engineering.